Microscale Inorganic Chemistry Workshops for Undergraduate Faculty

Microscale techniques can be applied to such important areas as organometallic chemistry and bioinorganic synthesis. This offers many advantages to the traditional offerings in these fields, most notably reductions in the quantities of chemicals used, safety hazards, time required to perform an experiment, and amount of waste produced. Air quality is sharply improved. The workshops on microscale offer an opportunity in the ongoing effort at the revitalization of the critical field of inorganic chemistry laboratory at the undergraduate level.